Electron-Molecule Collisions in Different Environments

Processes of interaction of low-energy electrons with molecules play important role in
gaseous, plasma, liquid and condensed-matter environments. Increased interest to
these processes is stimulated by recent studies of their role in the physics of the upper
atmosphere and in biological environments. Placing molecules in laser fields creates
opportunities for control and manipulation of electron-molecule collision processes.
Electron-molecule interactions in different environments present interest not only due to
their importance in applications, but also because they demonstrate interesting physics
mechanisms.
The present project proposes to study electron-molecule collision processes in gas
phase, on surfaces, in condensed matter environment and in the presence of strong
laser fields.
The first part of the proposal deals with dissociative electron attachment to polyatomic
molecules with the account of interaction between two resonances or interaction
between several vibrational modes. The role of vibrational Feshbach resonances due to
weakly-bound dipole-supported states in these systems will be further investigated. The
second class of processes which will be studied is dissociative electron attachment to
physisorbed molecules and molecules embedded in bulk medium. The theory of these
processes taking into account the electron interaction with the environment will be
further developed. Finally, the effects of laser field in electron-molecule interaction will
be studied. The main focus will be on the above-threshold ionization and particularly its
resonant enhancement which was recently discovered in atom ionization.